A Gas Chromatograph/Mass Selective Detector System

9352108 Warnet A Hewlett-Packard Gas Chromatograph/Mass Selective Detector (GC/MSD) system is being used throughout the chemistry curriculum. Students are having hands-on experience with this instrument in research-oriented experiments in courses and as part of their research training. In addition, students are using the instrument in Freshmen Honors Chemistry, in the Organic sequence for product separation and identification and as part of a synthetic project, and in the Instrumental Analysis course for analytical experiments. The instrument also is serving as a key component in our plan to expand research opportunities for our majors. One research project is using the GC/MSD for separation and identification of products from a coupling reaction catalyzed by a newly discovered enzyme. ***